Collaborative Research: Effects of Soil-Borne Resources on the Structure and Dynamics of Lowland Tropical Forests

Despite current interest in tropical forests as key components of the global carbon
cycle and as centers of biodiversity,we remain largely ignorant of the inter-relationships
among forest attributes (e.g.,dynamics,diversity,structure),and the physical properties
of the environments in which these forests grow.In recent years datasets have become
available describing growth,mortality and recruitment of approximately 10%of the
global diversity of tropical tree species.These data result from the development of a
network of large-scale forest dynamics plots coordinated by the Center for Tropical
Forest Science (CTFS),and established using methods identical to those used to survey
and census the 50-ha Forest Dynamics Plot on Barro Colorado Island (BCI),Panama.
Just as data from the BCI plot have played a prominent role in our understanding of the
community-level consequences of ecological processes played out at local scales,we will
show how these plots now provide an unprecedented opportunity to examine a venerable
question in tropical ecology:How do soil-borne resources influence the variation in forest
structure and demographic turnover rates observed among plots,and among habitat types
within plots?
To achieve this objective we propose three sets of measurements.At nine plot
sites we will characterize variation in soil-moisture availability through the year and
throughout the plots using a hydrological model (TOPMODEL).This model predicts
soil-moisture saturation deficit based on rainfall,stream-flow data and local topography.
Second,at five plots currently lacking soils data we will sample soil-chemical properties
within standardized,topographically-defined habitat types.Third,at the same plots we
will perform seedling growth experiments using mycorrhizal and non-mycorrhizal
pioneer species to assess plant-availability of soil nutrients for each habitat type.These
measurements will allow us to address questions at two spatial scales.At the among-plot
scale we will be able to ask how stem density and basal area,as well as community-wide
patterns of growth,mortality and recruitment,correlate with moisture availability and soil
fertility.At the within-plot scale we will ask whether species exhibit specialization to
particular hydrological niches,and whether habitat types differ in soil fertility,in
turnover rates,and in local species richness.Resolution of these broad questions
concerning correlations among soil-borne resources and characteristics of the vegetation
will in turn permit us to refine future hypotheses aimed at understanding the mechanistic
basis for interspecific variation in demographics and distribution.
This study will provide the first standardized large-scale measurements of the
environmental context within which tropical forests grow.Our trans-continental approach
to testing questions of ecosystem function and community organization has rarely been
attempted,but it will be essential if we are to improve our understanding of the
biogeographic and biophysical limits to our ecological generalizations.Understanding
how variation in water and nutrient availability determines forest structure,composition
and dynamics,and potentially influences local diversity through niche partitioning,will
be essential to predicting future vegetation responses to climate change and will also
provide a first step in guiding management to protect forest diversity.Wide dissemination
and application of the results of this project is ensured by the active participation of in-
country collaborators,and by data sharing through CTFS.